Integrating Microfluidics, Materials Science and Microbiology: Biosensors for Protecting Wastewater Treatment Systems

0086883 Love The objective of this research is to explore the phenomenon and sensor applications of cation release from bacteria. Upon exposure to chemical toxins, bacteria release potassium ions. These ions, in turn, can generate a detectable optical signal when they interact with fluorophores that are incorporated into polymeric films. This project will investigate the physiology and kinetics of ion release in more detail. Additionally, a prototype toxic indicator device that integrates immobilized bacteria and optical sensing will be developed in collaboration with the Chemical Science and Technology Laboratory at the National Institute of Standards and Technology. This grant is made pursuant to Solicitation NSF 00-49, New Technologies for the Environment.***